Target-Induced Regulation of Neuronal Synapse Formation

9421372 Zoran How complex patterns of synaptic connections are formed during nervous system development and regeneration is a fundamental concern of neuroscience. Developing neurons must make a series of choices, including the differential recognition of appropriate and inappropriate pathways and targets, that result in highly stereotyped patterns of connectivity. Once a growth cone at the tip of a neuronal process arrives at its appropriate target region, it forms potential synaptic contacts and initiates synapse formation. The idea that growth cones derive specific recognition signals from targets and that these signals regulate decisions of synaptic target choice has been considered for some time; however, the molecular nature of these target-derived cues and the mechanisms of their presynaptic transduction remain largely undefined. Cell-cell interactions, between neurons and their synaptic partners, govern critical steps in the formation of synaptic connections during nervous system development and regeneration. This project will focus on early inductive events that govern the acquisition of presynaptic secretory function during the selective synapse formation of identified motor neurons in cell culture. Motor neurons,gain the ability to release neurotransmitter only following contact with their appropriate muscle targets. A major goal of these studies is to determine the cellular mechanisms governing these inductive events. Neurons make a series of choices, including pathway and target selections, during development that result in highly stereotyped patterns of connectivity. These selection processes likely involve the differential recognition of appropriate pathways and targets. This work will provide insights into the molecular nature of retrograde synaptic signals, the cellular basis of synaptic target discrimination, and the role of cellular processes in the development of synaptic specificity.